Research in Robust and Efficient Computational Methods for Partial Differential Equations Arising in Fluid Flows and Electromagnetics

This project is directed towards the development, analysis and numerical
validation of new finite element methods for fluid flows and
electromagnetics. The research in methods for fluid flows will focus on
applications of nonstandard least-squares principles in the construction
of the numerical algorithms. While for incompressible viscous flows
conventional least-squares principles have established themselves as a
viable alternative to mixed Galerkin methods, such principles are not
completely satisfactory in the context of high Re or transonic flows. To
circumvent existing computational defects of L2-norm methods such as
sensitivity to singularities, lack of norm equivalence and etc., the new
algorithms will be based on mesh-dependent and negative-norm least-squares
principles. The emphasis of the second research direction will be on eddy
current computations in three dimensions. To address computational
complexity of 3D simulations algorithms will use equivalent potential
formulations of the governing equations. The issue of proper gauge
selection for the potentials will receive a thorough and systematic
examination so as to ensure well-posed sets of differential equations.
Algorithmic development will pay special attention to the efficient
implementation of the relevant boundary and interface conditions where
least-squares terms will be used to enforce these conditions weakly.

The common thread which links the two principal research directions of
this project is the focus on new computational algorithms for partial
differential equations. Such equations arise in virtually every field of
science and engineering and their efficient numerical solution is critical
for our ability to conduct computer simulations of physical processes
ranging from atmospheric motions to flows of current in superconductors.
As a result, development of high performance computational tools which
enable realistic simulations will play an increasingly important role for
the future advances in science and technology. The impact of such
computational algorithms will be felt not only in terms of tremendous cost
and/or time savings made possible by replacing field experiments by
virtual, computer experiments, but also by the fact that in some instances
computer models may be the only feasible design approach. In the focus of
this project is the development of such tools for differential equations
arising in modeling of fluid flows and electromagnetic fields. Two
specific applications that we have in mind are computation of
three-dimensional eddy currents and simulations of transonic and high
Reynolds number flows. One motivation for our research is the practical
relevance of these problems. For instance, solution of the eddy current
equations arises in such varied areas as development of toroidal field
magnets for fusion power, modeling of plasma physics phenomena, and design
of tape heads, while transonic and high Re flows are relevant to design of
aircraft and modeling of dispersion of pollutants. At the same time
numerical solution of these problems in realistic three-dimensional
settings continues to be an outstanding and challenging computational
task. Thus, our research is also motivated by the real and existing need to
develop efficient and robust computational tools for electromagnetics and
fluid flow applications which can be used in such realistic settings.